RUI: Fundamental and Applied Nuclear Physics with Undergraduates

A Research in Undergraduate Institutions (RUI) grant has been awarded to the
Hope College Nuclear Group (under the direction of Dr. Paul DeYoung and Dr.
Graham Peaslee) by the National Science Foundation to support a variety of
undergraduate research projects for the next three years. The research
activities will center on understanding the properties of unstable nuclei far
from stability, which are essential for understanding the fundamental nuclear
force, modeling the formation of heavy elements in supernovae, and testing a
wide variety of nuclear theories and models. In addition, we will be
developing novel applications of nuclear physics techniques to questions in
other scientific fields, which can lead to valuable new scientific information
in these areas. Involving undergraduate students in all of these efforts
educates them, excites them, and gives them tremendous preparation for
graduate work.

Specifically the Hope College Nuclear Group currently is planning to
characterize the structure of several radioactive nuclei, including 16Be,
13Li, 5H, and 9C. These studies will be done at the National Superconducting
Cyclotron with the Modular Neutron Array (MoNA) and the University of Notre
Dame with the ND neutron wall. At the Hope College Ion Beam Analysis
Laboratory, the nuclear group will use nuclear scattering and x-ray
spectrometry along with accelerator and detector technology to determine
metalloprotein stoichiometry, to characterize the trace-element constituents
of glass, and to determine the geological provenance of sand grains.
Rutherford backscattering will also be used to characterize electropolymers
and conduct in-situ measurements of protein fragments in gels.

Undergraduate students will participate in all aspects of the experiments:
planning, detector development, experiment setup, data taking, analysis, and
dissemination. This grant will also provide support for a postdoctoral
associate as part of a trial effort to train future researchers that can
effectively involve undergraduate students in the setting of a primarily
undergraduate institution.
**